Presidential Awards for Excellence in Science, Mathematics and Engineering Mentoring.

Dr. Jones received her Ph.D. in Mycology from Atlanta University in 1979. She is Dean of the School of Science and Professor of Biology at Hampton University. Her distinguished career as a scientist and educator spans 18 years. Her most competitive status is highlighted by the following: Impressive impact on mentees, as documented in letters of support. Volunteer activities within the community and institution served to catalyze the efforts to bridge the gap between high school students knowledge and participation in undergraduate science programs at the university. Direction of major grant efforts from Federal and private sectors to develop and enhance science programs for underrepresented groups. Creative work with middle school and high school science fairs in addition to her other responsibilities. Numerous awards for teaching and leadership. Significant community activity, including tutoring and Girl Scout Board membership.